FRG: Collaborative Research: Moduli Spaces of Riemann Surfaces and String Topology

Abstract

Award: DMS-0244550 and DMS-0244100
Principal Investigator: Ralph L. Cohen, Jun Li,
and Dennis P. Sullivan

This project investigates the topology of
moduli spaces of Riemann surfaces, their applications to string
topology, and certain mathematical questions arising from string
theory in physics. It is a collaborative project involving
algebraic topology, algebraic geometry, and Riemann surface
theory. It will pursue significant new research opportunities
arising from three recent important developments: The
Madsen-Weiss proof of the famous conjecture of Mumford on the
stable cohomology of moduli spaces, the discovery by Chas and
Sullivan of the new structures on the topology of loop spaces of
manifolds, and recent advances in open string theory in physics.
One of the goals of this project is to understand the
implications of Madsen and Weiss' theorem on the Chas-Sullivan
"String topology" theory. Another aspect of this project is to
study the relationship between string topology and Gromov-Witten
theory in algebraic geometry. A longer term goal of this project
is to investigate how this theory can help to give a mathematical
framework for analyzing certain specific questions motivated by
open string theory in physics.

Geometric questions have long been motivated by the attempt to
understand physical theories. Einstein's general theory of
relativity, and the attempt to place it in firm mathematical
foundations, motivated much of the development of differential
geometry throughout the 20th century. During the last 20 years
of the century generalizations of the famous Maxwell's equations
for electricity and magnetism led to new techniques for studying
geometry and topology in dimensions three and four. String
theory is a relatively new quantum theory of gravity. Placing it
in firm mathematical foundations is quite challenging, and has
motivated quite a bit of new research in geometry. For example
the techniques of string theory predicted the answers to some
classical questions in enumerative geometry, many of which were
later verified using a new theory in algebraic geometry due to
the mathematician M. Gromov, and the physicist, E. Witten.
String theory involves understanding how vibrating strings evolve
through time. As a string evolves, it maps out a two dimensional
"world sheet". So the mathematics behind string theory must
study spaces of "strings", or curves and loops, as well as spaces
of two dimensional surfaces in an ambient space. This project
has been motivated by recent advances in understanding the
topological structure of spaces of strings, ("string topology"),
as well as a separate breakthrough in understanding the space of
two dimensional surfaces. The goal of this project is to
understand the implications of this breakthrough on "string
topology", understand how this topological theory is related to
the geometric theory of Gromov and Witten, and to apply these
theories to certain specific questions arising from string theory
in physics. This award supports a Focused Research Group based
at Stanford University and SUNY at Stony Brook.